Organic Phase Immunochemistry

This Small Business Innovation Research (SBIR) Phase I project is in the topical area of chemistry and in the subfield of immunochemistry. The thrust of this activity is research leading to defining the extent to which nonaqueous immunochemical processes can be generalized. Immunochemical techniques have many diverse applications. However, they are restricted to use only in aqueous media. Economical techniques for direct organic phase analysis and immunoaffinity isolation would significantly broaden the usefulness of antibody-based technology. The purpose of this project is to determine the feasibility of exploiting antigen- antibody binding in the organic phase. A series of solvents, antibodies, and antigens will be selected to identify the parameters influencing antigen-antibody binding in nonaqueous solvents. Detectable specific binding will be the basis for justifying development of organic phase immunoassays, affinity isolation techniques, and other novel applications for antibodies. Successful demonstration of specific antigen-antibody binding in nonaqueous phases could be the basis for developing useful new immunochemical technology. Environmental and clinical monitoring could benefit from a marked improvement in the analysis of pesticides and lipid-soluble drugs. The production and quality control of pesticides, pharmaceuticals, and industrial organic chemicals would be enhanced by organic phase immunoassay determination of trace contaminants, real-time monitoring of undesired side reactions, immunoaffinity removal of trace metal contaminants from process streams, and enhanced efficiency of chemical processes with catalytic antibodies. Additionally, significant improvements in enantiomeric separation and stereoselective synthesis could be achieved.